Workshop/Conference on Semigroups of Operators and Applications; Curacao, Netherlands Antilles; August 5-14, 1992

This Science in Developing Countries award will support travel by U.S., Caribbean, and Latin American participants to a Workshop/Conference on Semigroups of Operators and Applications, to be held in Curacao, Netherlands Antilles, August 5-14, 1992. The Workshop/Conference is sponsored by the Caribbean Mathematics Foundation, with funding from the University of the Netherlands Antilles and from the European Communities. The organizer is Jorge Martinez of the University of Florida. The Workshop/Conference will bring together speakers and participants from countries in the Caribbean and Latin America. Jerome Goldstein of Tulane and Louisiana State Universities and Gisele Rieder of Louisiana State University will be the principal lecturers. The international gains from this Workshop/Conference will include topical information addressed to regional needs and knowledge gaps, publication of papers presented, and contacts for future research collaboration between mathematicians from developed countries and those from developing countries.